CAREER: Non-linear Electromechanics of Ferroelectric Ceramics

Abstract (0238522)
Chad Landis, Rice University

This CAREER project is focused on the studies that are aimed at developing the 3 dimensional, fully coupled, constitutive laws and fracture mechanics theories for performance and reliability modeling of ferroelectric ceramics devices. Information obtained from microelectromechanical self consistent models will be incorporated into a phenomenological constitutive framework, and the constitutive laws will be applied to analyze the fracture processes in ferroelectric ceramics.

The broad impacts include both domestic and international collaborations,wide dissemination of computer codes over the web, graduate and undergraduate students involvement and mentoring, and the transfer of the modeling and analytical tools to device designers and researchers. Out reach to undergraduate groups and women and minorities will be emphasized.

This is a new CAREER award of the CMS/ENG Division.